Workshop on cross-linguistic issues in sign languages: phonology and morphology; Albuquerque, NM, June 26-August 4, 1995

9420873 ABSTRACT This grant will partially support a six-week research workshop on cross-linguistic issues in sign language to run concurrently with, and as part of, the six weeks of the 1995 Linguistic Society of America (LSA) Summer Institute at the University of New Mexico in Albuquerque. The workshop has four objectives. First it will allow scholars trained as linguists who also are fluent in a sign language to come together in order to address a well-defined set of empirical questions about sign language structure and its linguistic representation. The answers to these questions will take us a step further in distinguishing what is language-particular about sign structure from what is common to all sign languages. The group of sign languages targeted in this workshop are: Italian Sign Language, Norwegian Sign Language, Langue des signes quebecoises, Sign Language of the Netherlands, Japanese Sign Language, Hong Kong Sign Language, British Sign Language, and American Sign Language. The second objective of the workshop is to facilitate the formation of new cross-linguistic sign language research based on a common set of theoretical tools, to be presented in the lectures and readings of the workshop. The third objective of the workshop is to lay the groundwork for an edited volume on the topic of cross-linguistic issues in sign language phonology and morphology. Finally, by conducting this workshop at the LSA Summer Linguistic Institute we expect to open the discussion of cross-linguistic issues in sign languages to interested groups of students and scholars and to facilitate interdisciplinary work concerning the analysis of gesture and sign.